Group Travel for U.S. Participants in the Second Scientific Assembly of the International Association of Hydrological Sciences in Budapest, Hungary, July 2-10, 1986

A team of U.S. scientists will attend the Second Scientific Assembly of the International Association of Hydrological Sciences in Budapest, Hungary, July 2-10, l986. The American Geophysical Union (AGU) will be responsible for the administration of the travel grant and will constitute a committee of scientists that will screen the requests for travel support and make recommendations for funding. During the meeting the assembly will discuss the engineering issues related to: snow melt - induced processes and forecasting; changes in water quality and presence of pollutant in snow and snow melt waters; and surface water - groundwater quantitative and qualitative interactions.